Acquisition of a Tunable Ultrafast Laser and a Femtosecond Time-Resolved Optical Spectrometer

With this award from the Major Research Instrumentation (MRI) Program, the Department of Physics at the University of Connecticut will acquire a tunable ultrafast laser and a femtosecond time-resolved optical spectrometer. This equipment will enhance research in the following areas: a) photosynthetic energy transfer; b) biological photoconversion; and c) high-intensity laser physics. Faculty and students from Bowdoin College, a primarily undergraduate institution, will also carry out research studies using this instrumentation.

This instrumentation will allow participating students and postdoctoral associates to obtain experience in the techniques for the study of ultrafast processes applied to biological materials and strong field physics.